Deformation and Real-Time Seismic Amplitude Monitoring at Merapi Volcanic, Java

This award provides for one-third of the funding needed for the acquisition of equipment to monitor seismic, deformational, and explosive activity at Merapi volcano in Indonesia. The additional funding for this acquisition has been committed by the Pennsylvania State University. Monitoring with this equipment will make it possible to systematically evaluate the deformation at Merapi volcano over the next few years, a period within which a significant explosive eruption is considered likely. The equipment requested includes electronic tiltmeters and accompanying telemetry systems to monitor dome activity and a "total station" surveying system to enable dedicated, full-time monitoring of the Merapi edifice deformation. Deformational data will be interpreted in conjunction with conventional telemetered seismic data obtained by the Volcanological Survey of Indonesia as well as a real-time seismic amplitude monitoring system to be installed by the Principal Investigator. The research to be carried out with this instrumentation will enable Merapi volcano to be used as a natural laboratory to understand crucial volcano deformational processes, and to test and refine deformation models before and during volcanic eruption.